EPSCoR Research Fellows: NSF: Developing Laser-Integrated Multimodal Instrumentation and Advancing Light Manipulation of Quantum Materials

This Research Infrastructure Improvement (RII) EPSCoR Research Fellows project provides a fellowship to an Assistant Professor and training for a postdoctoral fellow at the University of Alabama Tuscaloosa. This work will be conducted in collaboration with Drs. Jerzy T. Sadowski and Abdullah Al-Mahboob at Brookhaven National Laboratory. Through the fellowship, the PI will develop a laser-integrated multimodal photoelectron spectro-microscopy for investigating laser excitation and manipulation of quantum materials. The project will advance the frontier of materials science and condensed matter physics by imaging laser-induced metastable electronic states beyond the reach of conventional techniques and revealing complex interactions between multiple degrees of freedom in quantum materials. Beyond the proposed research, the fellowship will establish a new partner-level collaboration between the University of Alabama and Brookhaven National Laboratory, expanding Alabama's research infrastructure, national visibility, and sustained access to world-class synchrotron user facilities.

This project will address a fundamental frontier in quantum materials: understanding and controlling light-induced metastable states created by single-shot ultrafast laser excitation. These non-equilibrium states provide a pathway to optically switchable functionalities for future electronics, information storage, and quantum technologies. The project is innovative in integrating a single-shot ultrafast laser with synchrotron-based X-ray photoelectron spectro-microscopies, enabling one-of-a-kind spatially resolved, multimodal characterization of coupled electronic, lattice, spin, and chemical dynamics. Integrating the ultrafast laser system will establish a unique shared research capability for time-resolved and photon-energy-tunable studies, significantly expanding institutional infrastructure in ultrafast spectroscopy and non-equilibrium physics. The project will provide immersive training for the PI and a postdoctoral researcher through national laboratory residencies and hands-on instrument development. The resulting capability will be accessible to the broader user community, enabling new opportunities in advancing light-induced phenomena and optical control of quantum materials. This project is supported by the EPSCoR Research Infrastructure Improvement Program: EPSCoR Research Fellows (ERF), which supports early- and mid-career investigators in eligible jurisdictions to develop collaborations at the nation’s private, government or academic research institutions.